Dissertation Research: Structural Properties of Prosimian and Small Anthropoid Limb Bones: Estimation of Body Mass andLocomotor Mode in Fossil Prosimians

The primary purpose of this Dissertation Improvement proposal is to examine the relationship between body size, locomotion and structural properties of the fore and hindlimb bones in several species of small to mid-sized primates. The relationships will be calculated in modern specimens for which full skeletons are available. Subsequently, a variety of Eocene primates will be studied in order to clarify knowledge of their locomotor modes as well as body mass. This approach is necessary as most Eocene primates are poorly represented in the fossil record and as inference as to behavior is always difficult when working with fossil remains.